Radar Investigations of Former Shear Margins: Roosevelt Island and Ice Stream C

This award is for two years of support to perform radar investigations across former shear margins at Roosevelt Island and Ice Stream C in order to measure changes in the configuration and continuity of internal layers and the bed. The broad goal of these investigations is to gain an understanding of ice stream flow and the timing and mechanisms of ice stream shutdown. A high-resolution short-pulse radar system will be used for detailed examination of the uppermost hundred meters of the firn and ice, and a monopulse sounding-radar system will be used to image the rest of the ice column (including internal layers) and the bed. Changes in the shape and continuity of layers will be used to interpret mechanisms and modes of ice stream flow including the possible migration of stagnation fronts and rates of shut-down. Variations in bed reflectivity will be used to deduce basal hydrology conditions across lineations. Accumulation rates deduced from snow pits and shallow cores will be used to estimate near-surface depth-age profiles. Improved understanding of ice stream history opens the possibility of linking changes in the West Antarctic ice sheet with the geologic evidence from Northern Victoria Land and the ocean record of the retreat of the grounding line in the Ross Sea.